ITR: On a Virtual Laboratory for Network Engineering Educational Programs

EIA-0081761
Zhao, Wei
Texas Engineering Experiment Station

ITR: On a Virtual Laboratory for Network Engineering Educational Programs

The primary objective of this proposed research is to investigate issues
involved in building a virtual laboratory for network engineering
educational programs. Different from a conventional teaching laboratory,
the proposed virtual laboratory will not require students to physically
present in the laboratory rooms, rather they conduct their experiments via
remote network connections, such as the World Wide Web. The intent is to
demonstrate that this kind of virtual laboratory facilitates the training
of IT workers in a significant way: it will reduce the cost, increase the
facility utilization, and improve the quality of IT courses that are
experiment-oriented. This project will focus on addressing technical
challenges that are critical for successful implementation and operation of
such a virtual laboratory. Configuration and scheduling techniques will be
studied that provide students with remote but real time access to the
equipment during their experiments. These kinds of configurations must be
carried out in an efficient and flexible manner so that a large number of
students can do their experiments simultaneously. Access control methods
will also be investigated that deal with the degree of control over network
components given to the user. The efficacy of diverse access control
methods will be examined over a range of implemented exercises. The aim is
to build a virtual laboratory that allows an instructor to choose the
interplay of operating system support, experiment semantics, and network
support to best suit the learning environment.